Numerical Methods for Multiscale Physical Problems

Many physical problems have multiple time and space scales that
impose tremendous mathematical challenges and numerical
difficulties. It is proposed to develop several classes of numerical
methods for efficiently computing some important physical
problems that admit multiple scales. The problems under study
are of a fundamental nature, ranging from quantum mechanics,
classical mechanics, kinetic theory to hydrodynamics. In
particular, there will be efficient numerical methods developed
for: 1. the Schroedinger equations that can be extended efficiently
into the (semi)classical regime; 2. multiphase computation in
classical mechanics and related problems, and its application in
modulated electron beams in a Klystron; 3. kinetic equations that
are also efficient in the transition and fluid regimes. The
numerical methods rely on the deep mathematical understanding
of the transition from one physical scale to the other. It will
provide several essential ingredients to many numerical methods
for multiscale physical problems.

The study of these problems is central to many areas of
mathematical physics and to the mathematical foundation of
modern technology (e.g., MEMS, nanoscale science and
technology, plasmas, fluid mechanics, continuum mechanics, ...).
These projects, if successfully carried out, will provide novel and
state-of-the-art numerical methods to efficiently simulate
important physical problems of multiple scales. These will
significantly enhance our understanding of a variety of important
physical problems arising in modern industrial applications.